SGER: Inter-Domain Authentication and Authorization for Large Information Systems

IRI-9526703 Chow, Randy University of Florida $50,000 - 12 mos SGER: Inter-domain Authentication and Authorization for Large Information Systems The ultimate goal in this exploratory research is to develop models and tools to facilitate the development of a secure logical network in an untrusted physical environment. Cooperative users should have the flexibility to define their own security enforcement mechanisms and implementation, yet they must also conform to the overall security policy of the system. This research will address the fundamental issues involved in achieving this goal. This capability is needed to permit commercial and governmental users to take full advantage of the recent technological advances in high speed computers, high bandwidth communication, high capacity storage devices, and Internetwork systems such as the world-wide web. Both coordination and security across autonomous domains (independent system administrations) are required for large, distributed information systems, particularly ones implementing multimedia infoware designs, and increasingly available CSCW (Computer Supported Cooperative Work) applications.